CISE Research Instrumentation: A Laboratory for Interactive Applications for Computational Vision and Language

9818322
Dickinson, Sven
Stevenson, Suzanne
New Brunswick, NJ 08854-8010

A Laboratory for Interactive Applications of Computational Vision and Language

This research instrumentation enables research projects in:
- Visual Object Recognition and its Applications to Robotic Aids for the Disabled,
- Model-Based Estimation, Tracking, and Recognition for Observing Human Activities,
- Evaluating Interactive Systems Based on Natural Language Generation, and
- Resolving Ambiguities in Interactive Instructions.

This award supports established, on-going research in computer science and engineering at Rutgers University and contributes to the purchase of a Minolta 3-D laser scanner/object modeler, a Nomadics Technologies XR4000 Robotic Arm and Stereo Vision Upgrade, a Vision One Video Tracking Platform, four STW Linux-based PC's, and a membership in the Linguistic Data Consortium (a source of text corpora). The equipment forms the basis for a new Laboratory for Interactive Applications of Computational Vision and Language, directed by the four PIs, and will be shared among four collaborative research projects spanning the areas of computer vision and natural language processing: (1) the integration of object recognition and language understanding in a robotic system for the disabled; (2) the development of integrated vision systems that combine estimation, tracking, and recognition of both objects and events in a model-based framework; (3) the design of a video analysis system for evaluating automatically generated instructions; and (4) the development of automatic ambiguity resolution procedures for natural language instructions. In each case, the resulting technologies are embedded within human-computer interfaces, thereby taking a step toward achieving the goal of more natural interactive systems.